U.S.-Australia Cooperative Research: Remote Sensing Image Processing

This award will provide partial support for Dr. Robert A. Schowengerdt of the University of Arizona to spend six months doing collaborative research with Drs. Donald Fraser and John Richards of the University of New South Wales in Campbell, Australia. They will work on two research topics which are important to the application of image processing to remote sensing: (1) Fourier and spatial domain image resampling, and (2) Expert system architectures for image enhancement and analysis. Dr. Fraser's background is in mathematical and algorithmic techniques in signal and image processing. Dr. Richard's interests are in the physics of remote sensing, in particular the use of radar, and in multisource data analysis in remote sensing. Dr. Schowengerdt's research has been on sensor aspects and pragmatic image processing tools for remote sensing application. This complementarity of expertise, together with the parallel development of a network of image processing workstations based on the Macintosh II computer at both the University of Arizona and the University of New South Wales, should insure a productive collaboration.